POWRE: Analysis of Xath5 Expression in the Xenopus Retina Using Transgenic Technology

During development of the vertebrate neural retina, multiple neuronal cell
types are born and differentiate under the control of a complex set of
factors that are poorly understood. To gain a complete understanding of the
molecular mechanisms regulating retinal neurogenesis, it is essential to
define the hierarchy of genes involved in this process. The goal of this
project is to use recently developed transgenic methods in the model
organism Xenopus laevis to define which factors control expression of the
transcription factor Xath5, a key regulator of retinal neurogenesis. The
Xenopus transgenic method provides a unique opportunity to rapidly and
inexpensively map the regulatory control regions of developmentally
important genes, thus making it possible to define how genes come to be
expressed in precise spatial and temporal patterns during development.

These experiments will provide a more complete understanding of the steps
leading to normal retinal development. In addition, this work will advance
our understanding of nervous system development in general, since the
retina has proven to be a reliable model tissue for studying nervous system
development and function. Finally, the development and application of the
new transgenic method in Xenopus laevis will open up many possibilities for
future investigation and discovery in the field of developmental biology.

It is anticipated that this POWRE award will allow the principal investigator to
travel to learn a novel Xenopus transgenic method and to then establish it in her
laboratory.